Semistate Microelectronic Circuit Design Theory

The main theme of this research is the development of semistate design theories for microelectronic circuit realization. The theories are oriented toward applications in areas where the proposers have particular expertise, such as coordinated arm control circuits for knot tying robots, neural-type hysteretic microsystems, soliton circuits for noiseless signal processing, and Kemp echo simulators for noninvasive determination of ear parameters. The semistate description is ideal for characterizing microelectronic systems, since semistate equations simultaneously incorporate dynamic and nondynamic descriptions and microelectronic systems involve dynamics through capacitive effects and nondynamics through resitive-controlled source effects. There is now a large literature on the analysis of semistate described systems with particular reference to solution of the resulting equations. However, very little is available in the area of design of semistate described systems. This research deals with the development of design theories, especially in the areas where the full power of the semistate comes into play, including hysteresis and knot oscillators. The theories are oriented toward the above mentioned applications.